Synthesis and Metabolism of Chlorophylls

The Synthetic Organic Program is supporting the research of Dr. Kevin M. Smith of the Department of Chemistry at the University of California-Davis. Professor Smith is engaged in a broad-based and wide-ranging study of the synthesis, biosynthesis, chemistry, and spectroscopy of chlorophylls and bacteriochlorophylls. Chlorophylls are the catalysts in the vital process of photosynthesis and are involved in light gathering (antenna systems) as well as in the process of charge separation (in the reaction center). Current work focuses on the investigation of the chemical and biochemical basis for the methylation of bacteriochlorophyll-c and -d pigments which causes shifts in the cell absorption maxima, enabling the bacterium to adapt to conditions of low light. Esterifying alcohols on bacteriochlorophylls-c and -d molecules will be correlated with age of culture and extent of alkylation. Biosynthetic studies will also be undertaken; these involve biosynthesis of bacteriochlorophylls-c and -d, using isotopically enriched (carbon-13 and carbon-14) precursors to determine the branchpoint from chlorophyll-a biosynthesis and the latter stages in bacteriochlorophyll-a biosynthesis. A chemical synthesis of chlorophyll-a and its 4-vinyl analog, conversion of the former into the latter, and a biomimetic ring-cleavage of chlorophyll derivatives for chemical synthesis of certain photochemically active active bilins (e.g. phytochrome, which regulates plant growth and development) will be studied. Finally, chiral chlorophyll derivatives will facilitate synthesis of chiral N-alkylporphyrin ferrochelatase inhibitors, and chemical and electrochemical cyclizations of tetrapyrroles to give porphyrins will be investigated.